Mathematical Sciences: Interacting Particle System Models ofEcosystem Dynamics

The two principal investigators, Richard Durrett and Simon Levin, bring to this Small Grants for Exploratory Research project expertise in stochastic processes (mathematics) and ecology (biology). They will apply ideas from the theory of interacting particle systems to study the spread and persistence of invading species and the role of dispersal in the dynamics of populations and communities. Concrete problems include (i) the effect of environmental inhomogeneity on the spread of raccoon rabies (ii) epidemics in spatially distributed populations, and (iii) a spatial version of Maynard Smith's evolutionary game. These applications will require the development of some new theory, e.g. methods for estimating critical values, since interacting particle systems have not yet been applied to real data.